Bone Zone

0000620
BARTLETT

The Children's Museum of Indianapolis will develop a 6,000-sq. ft. traveling exhibition about bones, helping children and adults learn about the science of bones, maintenance of healthy bone structures and the cultural and artistic uses of bones. Also, the exhibition will help inform upper elementary and middle school audiences of career possibilities in science, further an understanding of bones as revealed through modern technology and promote understanding of the skeletal system. A Web site, teacher workshops, kits and other materials and events will support learning through this exhibition.